East Coast Oceanographic Consortium Proposal to Operate Regional Class Research Vessel (RCRV) #2

This proposal is for the ship operator selection of RCRV # 2. The monetary value of the proposal has no relation to the first year operational costs, and the selection process does not entitle the awardee to any ship operation funds until transition to operations has occurred. The awardee will enter into a contract with OSU under the MREFC phase of construction and delivery.